Archival Research in Micronesia

This research will describe and analyze the relationships between environmental conditions, sociopolitical complexity and degree of social stratification for 22 Micronesian islands. The PI will do archival research in a controlled comparison methodology. Using archaeological, ethnographic, ethnohistorical and linguistic sources the PI will reconstruct key elements of proto-Micronesian culture to describe and analyze variations in political and stratification systems. This project is important because it will provide a major synthesis of our knowledge of the peoples and cultures of Micronesia, and will provide a comparative case to similar studies for other areas of Polynesia. By applying a phylogenetic approach to cultural evolution in a little-known part of the world it will enhance our understanding of how systems of inequality arise and persist in human societies.